Mathematics, Microcomputers, and Meteorology

The goal of the course being developed in this project is to integrate mathematics-teaching and computer-learning into an applied science, meteorology. The course includes both lecture (three credit hours) and lab (two credit hours) sections for one semester. It is being offered to university students at the freshman or sophomore level to fulfill natural science requirements.The recently upgraded Meteorology Lab in the Atmospheric Sciences Program at UNCA as supported by the National Science Foundation provides a high-tech environment for students to archive, manipulate, display, and present satellite/radar imagery and other weather information interactively. Three specialized meteorological software packages (PC-McIDAS, The WXP, and UNAWIPS) allow students to fully visualize the development and movement of weather systems.Students have hands-on experience in lab sections and learn applications of microcomputers in meteorology.This multidisciplinary course maintains its integrity as meteorology and offers students practical training in mathematics and computer literacy.